Cell Interactions and Cell Fate Specification

0128140
Ettensohn

The accumulation of the protein beta-catenin in the nuclei of specific
cells is a critical, early step in the development of multicellular
animals. In all deuterostomes that have been studied, nuclear
accumulation ("nuclearization") of beta-catenin is polarized along one
axis of the early embryo. Nuclearization of beta-catenin is required
for mesoderm and/or endoderm formation and the establishment of early
signaling centers. Despite its fundamental importance in patterning
deuterostome embryos, the mechanisms that regulate the differential
nuclearization of beta-catenin are unknown. The early sea urchin embryo
is an ideal experimental system for the analysis of this problem. The
embryo is highly transparent, which facilitates analysis of the dynamics
of protein turnover and targeting in vivo using light optical methods.
The sea urchin system is also unique in that specific cell types can be
isolated from early embryos in large quantities. This critical
characteristic means that it is possible to isolate large quantities of
early blastomeres that have, or do not have, beta-catenin in their
nuclei, and study biochemical differences in the two kinds of cells.
Many of the central molecular components of the beta-catenin pathway
have been cloned from sea urchin, including several key players that
have been cloned recently in our laboratory. This powerful combination
of characteristics makes the sea urchin embryo a unique experimental
system for the analysis of beta-catenin nuclearization.

This proposal tests several specific hypotheses concerning mechanisms
that regulate the nuclear accumulation of beta-catenin during early
development. To test these hypotheses, a combination of time-lapse, 3-D
confocal microscopy, manipulation of embryos by microsurgical and
molecular biological methods, and biochemical approaches will be
employed. The major questions to be addressed are the following:

a) Do interactions between blastomeres play any role in regulating the
pattern of beta-catenin nuclearization during early development?

b) What is the stability (half-life) of beta-catenin in different cell
lineages at different developmental stages? Does the stability of
beta-catenin increase or decrease at specific times and in specific
cells?

c) Is the loss of beta-catenin on the animal side of the embryo mediated
through GSK3? If so, are there measurable differences in GSK3 activity,
stability, or abundance along the A-V axis?

d) What is the spatial distribution of axin, a regulator of beta-catenin
stability, along the A-V axis?

e) Is the state of the degradation complex different in animal and
vegetal blastomeres?

This research project will advance scientific knowledge by elucidating
the mechanisms of a fundamental process in animal development. It will
also contribute to the development of human resources through the
training of undergraduate researchers, graduate students, and
postdoctoral fellows.